Detecting and Preventing Attacks with Vulnerability Signatures

Nikita Borisov
Detecting and Preventing Attacks with Vulnerability Signatures
University of Illinois, Urbana-Champagne
0627671
Panel P060969

Abstract

Computer intrusions are an ever-present reality on the Internet, and
there is a pressing need to protect applications from their harmful
effects. This project will develop a new network filtering mechanism to
detect and prevent intrusions fast and precise vulnerability signatures.
Such signatures focus on the essence of the software defect leading to a
vulnerability and the steps necessary to exploit them; as such, they can
classify malicious and benign traffic with great accuracy and detect
exploits that have not been previously been seen. Vulnerability
signatures filter network traffic before it arrives at the application
and can be deployed without performing software upgrades. This project
will study the deployment of vulnerability signatures in the network,
either at a firewall or embedded on network interface cards, but still
logically and physically separated from the end hosts. Such separation
is necessary for widespread deployment of vulnerability signatures, but
introduces new resource constraints and performance requirements. This
project will analyze the resulting trade-offs by following a methodical
plan, informed by a detailed study of vulnerabilities and using models
of attack and benign traffic to guide us at every step of the way. A
prototype implementation will be developed and its effectiveness and
efficiency will be quantitatively evaluated. The techniques developed
in this project will offer an effective countermeasure to computer
intrusions that can easily be deployed on a large number of machines.
The research will also offer a foundation for other work on
vulnerability signatures, including automated worm defense. In
addition, the results of the detailed vulnerability study, including a
testing infrastructure, will be available for other researchers studying
computer intrusions.